Symposium on "New Methodologies in Polymer Synthesis", Pacifichem 2000, Honolulu, HI; December 14-19, 2000

This award provides for NSF support for the Symposium on "New Methodologies in Polymer Synthesis" at Pacifichem 2000, to be held in Honolulu, Hawaii, USA, Dec. 14-19, 2000. The symposium is intended to bring together leading polymer chemists, as well as young scientists, in the Pacific Rim countries to update their new results in order to achieve the following symposium objectives: (1) to showcase important trends in polymer synthesis and (2) to promote progress in polymer synthesis.
%%%
Major topics to be addressed are (1) polymerization of monomers and intermediates, (2) novel polymerization processes, (3) metal-catalyzed polymerizations, and (4) sol-gel networks.